Doctoral Dissertation Research: A Case Study of the Socio-Technical Evolution of Educational Infrastructure

This project will study cost-efficient ways of building and utilizing educational infrastructure in underserved communities. Using a case study approach, and multi-sited ethnography, the PI will focus on three communities to determine who infrastructure affects student performance.

This research will result in a dissertation and a trained professional who is dedicated to advancing applied research.